Workshop on Opportunities in Materials Theory; Arlington, VA; October 8-9, 1998

9873816 Liu This grant will support a workshop on "Opportunities in Materials Theory" to be held at NSF on October 8-9, 1998. The workshop will present talks on research areas which may present opportunities for future emphasis. %%% This grant will support a workshop on "Opportunities in Materials Theory" to be held at NSF on October 8-9, 1998. The workshop will present talks on research areas which may present opportunities for future emphasis. ***